Research in Nuclear Physics and Related Fields

A broad program of research in nuclear physics using an in-house accelerator at the University of Pennsylvania and other national facilities is supported by this grant. Gamma ray spectroscopy of nuclei far from stability, heavy ion resonant systems, and resonances and other high energy nuclear excitations will be studied. Development of accelerator and ion source systems for use in accelerator mass spectrometry is also supported.